The Role of Kinship in the Behavioral and Social Organization of Communal Breeding Primates

The Golden Lion Tamarin Conservation Project is an international collaborative effort to study the behavior ecology and sociobiology of Leontopithecus rosalia, to conserve a significant portion of the biodiversity remaining tin the Atlantic Forest of Brazil. The Atlantic Coastal Forest has the highest level of endemism of any part of South America. Among primates there are, in addition to several endemic species, tow genera that occur naturally no where else on earth. The golden lion tamarin is one of these. ıThe muriqui, or woolly spider monkey (Brachyteles) is the other.! They only survive because of Reserves such as Poco da Antas where Dietz is doing his study. The project is unique among primate studies because not just a few, but a large number of groups are being monitored. Knowledge of their social behavior will allow an improved capability of keeping the remaining few individuals successfully in captivity. The mating system of tamarins, generally, is among the most complex of any group of primates. The detailed study of many groups, using marked individually identified animals, whose genetic structure will be known through DNA fingerprinting, will continue to be the best and most thorough study of the variable social system of any tamarin. Keeping these rare animals alive in the wild depends on (1) maintaining their habitat, (2) knowing their social structure, behavior, and ecology (3) genetic management of remaining individuals, and (4) successful reintroduction of captive species into the wild. Already this project has increased the number of tamarins in the wild by 25- 30%| The infrastructure of the proposed research includes training Brazilian students, construction of facilities, training of Brazilian administrators and guards in the Reserve, and improvement of the conservation ethic of local communities.